Introducing Parallel Computing into the Undergraduate Computer Science Curriculum

This project introduces the concepts of parallel computing to the undergraduate curriculum at Blackburn College. The primary acquisition is the Intel iPSC 4-node hypercube. This small, distributed-memory parallel system provides a cost- effectivelaboratory for experimenting with parallel programming. This award is being matched by an equal amount from the principal investigator's institution.